Geospace Environment Modelingn (GEM): Communication Coordination and Science Support

This project will provide for the continued dissemination of research results from the Geospace Environmental Modeling (GEM) program through the use of the WorldWide Web, electronically disseminated newsletters, and published reports. The timely dissemination of news about the GEM program has been a critical part in the past successes of the GEM program and will continue to be vital to the future of GEM.